Environmental Chambers to Improve the Undergraduate Biology Curriculum.

A controlled-environmental room with two chambers procured with assistance from this award is enabling Biology students to develop a better understanding of experimental design. The laboratories in which these new facilities are being used are designed to give the students hands-on experience in manipulating environmental variables. This provides them with a better understanding of the effects of the various environmental factors on the physiology and behavior of organisms, as well as helping them to improve their investigative skills. Courses to which these chambers are contributing fresh opportunities for student originality and creativity include Animal Physiology, Plant Physiology, General Ecology and Vertebrate Zoology, as well as Independent Research. Since the school is located in the Appalachian Mountains, numerous local montaine species of fish, amphibians, reptiles and small mammals will be employed in these studies.